Acquisition of a Carbon-Nitrogen-Sulfur Analyzer

0337134
Anisfeld

This grant provides partial support for the acquisition of a Carbon-Nitrogen-Sulfur(CNS) analyzer for solid samples. This instrument would replace an antiquated CHN analyzer in the School of Forestry and Environmental Studies at Yale University which is no longer operable. The CHN would support research and education in fields spanning disciplines of forestry, soil science and marine chemistry. Specific examples of research uses of the CHN will include:

o measurement of C and N content of salt marsh sediment and vegetation in order to
understand marsh accretion and loss processes and their implications for coastal water quality

o measurement of S content of riverine suspended sediment in order to better understand the S cycle in oxygenated surface waters and its impact on trace metal speciation

o measurement of C and N content of riverine suspended sediment to supplement isotopic
studies aimed at understanding sources and bioavailability of particulate organic carbon

o measurement of C and N content of soil and plant material (including woody tissue) in order to assess the effects of changing nutrient status at the Hubbard Brook Experimental Forest

o measurement of foliage N content in order to understand the ecological and physiological controls on seedling development and tree health

o measurement of C and N content of tropical forest soils and vegetation in order to assess C sequestration in these ecosystems.
***